Travel to 3rd International Workshop on Hydra and Hydractinia Development, July 5-9, 1989 Gunzburg, West Germany

This proposal is a request for funds to defray travel costs for a number of investigators (faculty, post-doctoral fellows and graduate students) to attend the 3rd International Workshop on Hydra and Hydractinia Development. The workshop will be held July 5-9, 1989 in Gunzburg, West Germany. %%% This meeting has proved a valuable venue for workers in this rather small field to exchange ideas, results and newly developed methods. Several collaborations have arisen as a result of previous meetings.